Survey of the Insects in Ghana with Systematic Studies on Spider Beetles and Dung Beetles

NSF Proposal DEB-0430132
Philips
A survey of the insects of the Upper Guinean Forests
in Ghana with systematic studies on spider beetles and dung beetles

The Upper West African Guinean forests are considered one of 25 biodiversity
hotspots in the world and are a vital refuge and region of high species
endemicity. Knowledge of insect diversity in this habitat is poor relative to
that found in other threatened areas in the tropics. There is extreme urgency
for an insect survey in the Upper Guinean forests because this ecosystem is more
threatened and is disappearing more quickly than most other global hotspots.
Severe pressure on these forests results from some of the highest human
population growth rates, most intensive logging, and rampant bushmeat hunting
found anywhere in the world. The main goals of this project are: 1) to conduct
an intensive survey of insects in the Guinean forests of Ghana and two
additional areas in savannah and sub-sahalian regions, using a wide variety of
collecting techniques, resulting in the collection of a large diversity of
invertebrate groups previously unavailable to systematists; 2) to develop and
rehabilitate a host country authoritative reference collection thereby creating
a national insect collection and integrating it into the global systematics
community; 3) to educate and train students and collaborate with scientists from
Ghana (University of Ghana (Legon), Centre for Scientific and Industrial
Research, and The Ghana Wildlife Society) and students from Western Kentucky
University on insect sampling techniques, biodiversity studies, and insect
curation providing much needed scientific systematic expertise in Ghana; 4) to
partner with The Ghana Wildlife Society and other organizations and individuals
by providing web accessible databases with identification keys and images of
spider beetles and dung beetles and all available biological information on the
group.

The intellectual merit of this proposal is to ultimately better understand
the biodiversity of these poorly studied and highly threatened forests by
providing large numbers insect samples for study to improve insect taxonomy and
classifications, the cornerstone of biology, while they still exist. This work
will also result in knowledge on the diversity and evolution of two main target
groups: 1) the spider beetles which are arguably the most poorly known group of
African beetles, and 2) the dung beetles that are still very poorly known and
studied. The latter group is also ecologically unstudied in this region and is
of great interest because of the complex communities and behaviors exhibited.
They are also indicative of ecosystem health and hence extremely useful to
conservation organizations. The broader impacts include a better understanding
of African tropical forest biodiversity, its evolution, ecology, and
biogeography. Additionally, the vital aspect of student training, developing a
systematics infrastructure in Ghana, partnering with the primary conservation
agency in this country, and creating web accessible information on insects will
lead to better education of citizens of Ghana and the United States and
hopefully protection of the irreplaceable natural heritage of biodiversity in
the Upper Guinean forests of West Africa.